DEM: Girls in Science

The University of Kentucky will to establish a demonstration project called the Girls
in Science Program (GIS), to encourage young women from rural southeastern Appalachian
Kentucky to pursue careers in science, math, engineering and technology (SMET). This three-
year project, to begin in September 2002, targets 120 girls entering the seventh-grade
from 21 rural Kentucky Appalachian counties, parents of these girls, and a minimum of
30 rural Kentucky Appalachian middle school teachers from these 21 county school
districts. This project targets a select group of middle school girls with a program that
involves: 1) Weeklong Summer Institutes for each girl at the University of Kentucky campus
for two years, 2) Saturday/After-school sessions throughout two academic school years,
and 3) Mentoring relationships with University scientists and community mentors. The
project also the project targets middle school math and science teachers through
professional development courses focused on engaging each girl in science and math for
two years. This project will include parental involvement with a series of workshops.
The project team will also develop and disseminate a model middle school curriculum
manual focused on institutionalizing the program in rural Appalachian Kentucky. Girls and
teachers who enroll in the program will be the primary beneficiaries; however, the program
is designed to have a broad-based impact on other students, teachers, relatives, and
ultimately rural Kentucky and Appalachia.